Void Formation and Part Growth During Non-Isothermal Powder Sintering

Abstract CTS-9612676 The proposed project is to investigate heat transfer during selective laser sintering (SLS) of powdered materials. The SLS technique is relatively new for rapid prototyping. By selectively heating powders, non-isothermal sintering of powders would occur and uneven densification would follow. Because the ultimate shape of the solid is strongly dependent on how the material consolidates, the densification occurring at the void level affects the ultimate shape of the macroscale solid. The goal of the project is to understand the heat transfer process taking place and develop a model to predict the final shape of the solid. Such a model could us used to predict ways to minimize unwanted growth and improve manufacturing efficiency. Experiments will be conducted to grow solids under various non-isothermal conditions. A mathematical model based on a volume-average formulation will be developed to predict the shape of the grown solids.